Pines, Planning, and People: A Longitudinal Study of Social and Cultural Change

This proposal is to complete the first phase of a longitudinal study of social and cultural change in six rural towns in Venezuela. The towns are located in a zone slated for a large- scale, multi-stage regional development program based on commercial pine plantations, sawmills and paper pulp mills, and large infrastructural projects which include a new regional system of highways and a bridge linking the zone to the industrial complex at Ciudad Guayana. The data will make it possible to explore how management of natural resources affects and responds to the social and economic structures of local communities in a developing nation. The results will be generalizable beyond the study area and the methods will be replicable.